Solid State Oxides and Oxyfluorides

9727516 Poeppelmeier The preparation of new materials is one of the most challenging problems in modern solid-state chemistry. The research objective over the period of the next three years is to synthesize a large number of mixed metal oxyfluorides prepared from (hydrogen fluoride) x pyridine/pyridine/water solution (150 degrees centigrade, autoclave autogenous pressure) using metal oxides as reagents. The "composition space" approach will establish individual regions of stability (crystallization fields) and enable the selective crystallization of different phases within each system studied. Structures are expected which range from polynuclear clusters to one dimensional chains, two-dimensional layers and three dimensional frameworks. The hydrolytic chemistry of multi-cation precursors, templating methodology, and pH controlled oxolation (polyanions) and olation (polycations) reaction chemistry under study will advance our understanding of inorganic chemistry. %%% The design of inorganic solids is the important step in the development of materials that enhance our living standards. Research is proposed to develop new methodologies for inorganic chemistry leading to more complex inorganic solids compared to those that are presently available for use in computers, automobiles and as catalysts in the chemical and petroleum industry. ***